Investigations in Conformal Invariance and Equilibrium and Non-Equilibrium Quantum Field Theory (Physics)

This is a new proposal in the mathematical physics program which will study string theories in the presence of background modes and statistical models based on a generalized Coulomb gas of charges and monopoles. It is also proposed to study quantum field theories at high temperatures and density.